Optical Technology for Network Based Multiprocessors

This research focuses on developing techniques for space multiplexing on an optical bus, which supports parallel transmission of messages. Based on previous results on a distributed control mechanism and its analysis of worst-case performance, research is being carried out on a extensive simulation study for analyzing the average bus performance under realistic assumptions regarding load, traffic patterns and memory contention. A technique called coincident pulse selection and developed by the principal investigators is being studied for the optical bus architecture. Comparisons to well-known multiprocessor interconnection structures and the impact on fundamental parallel algorithms are being carried out. The gradual maturity of electro-optic device technology has made possible the construction of electronic-optical computers. The interconnection network is an important component in conventional multiprocessor system and is often a bottleneck in performance. The exploratory study on applying optical technologies to the design of multiprocessor interconnection network will have significant payoff and impact in the future. Results developed may lead to new architectures and algorithms in computer systems. Support of this innovative exploratory research is strongly recommended.